Synthesis of Novel Microporous Solids Containing Vanadium

The objectives of this research are to synthesize new organic- inorganic layered structured with adsorption sites for specific organic molecules and to investigate the synthesis of new extended lattices based on connected frameworks of VO5 square pyramids with tetrahedral oxyanions. Subsequent removal of the guest species from the solid leads to compounds which can show highly selective molecular sorption and ion complexation in subsequent reactions. The new phases will be characterized by powder and single crystal diffraction methods, magnetic susceptibility measurements and the determination of sorption isotherms and kinetics. These studies are of special value in catalysis for processes involving the production of fuels and chemicals.